Better Science Through Benchmarking: Theory Validation and Application to Software Engineering

Proposal Number: 0430026
TITLE: Better Science Through Benchmarking: Theory Validation and
Application to Software Engineering
PI: Susan Elliott Sim

The research seeks to refine a preliminary theory of benchmarking and use the theory to guide development of benchmarks for research results in software engineering. Benchmarks have been used in elsewhere in
computer science to compare the performance of computer systems, information retrieval algorithms, databases, and many other technologies. The creation and widespread use of a benchmark within a
research area is frequently accompanied by rapid technical progress and community building. According to the theory of benchmarking, these effects appear because a benchmark is closely tied to the discipline's
scientific paradigm (as described by Thomas Kuhn.) Both benchmarks and paradigms emerge through a consensus on technical results and cultural expectations for conduct. Based on a successful preliminary study
applying this theory to reverse engineering, this research develops additional benchmarks in software engineering and collect data to validate the theory. This work will have benefits for the field through
the specific benchmarks being developed, empirical evaluation of research results, and an improved understanding of how research is conducted. In terms of broader impact, the benchmarks enable
geographically under-represented groups to participate in top tier research, because they can be downloaded from a web site and completed in reasonable time.